Shipboard Scientific Support Equipment

9819862
Hahn
This award to University of Rhode Island will provide equipment in support of oceanographic research on R/V Endeavor, a research vessel operated by the university's Graduate School of Oceanography as part of the University-National Oceanographic Laboratory System research fleet. Specific equipment to be acquired includes a replacement tube for the vessel's rigid-hull inflatable boat, replacement computers for the ship's bridge, replacement of half the vessel's survival suits, and a camcorder for documenting shipboard operations. The shared-use equipment supported here will enhance operations and safety on the vessel, and assist marine scientists conduct studies from R/V Endeavor, particularly in the Northwest Atlantic Ocean, during 1999 and future years.
***